Substitutionally Disordered H-Bonded Ferroelectrics

The primary objective of this two-year U.S.-Yugoslav cooperative research project in low temperature physics between Janez Seliger of the Josef Stefan Institute and V. Hugo Schmidt ot Montana State University, is to obtain a fundamental understanding of superionic conductivity and ferroelectric and ferroelastic materials and systems using NMR and NMQ techniques. This work should substantially advance knowledge of structure of ferroelectrics. This project was approved by the U.S.-Yugoslav Joint Board on Cooperation in Science and Technology and is funded through a joint fund consisting of matching contributions from the U.S. and Yugoslav governments. The U.S. contribution is provided annually by the Department of State. No NSF funds are involved. Grants are made to the principal Yugoslav institute. Dollar funds are included for U.S. scientist travel to Yugoslavia and for Yugoslav scientists' living expenses in the U.S.